Postdoctoral Research Fellowship in Biological Informatics for FY-1999

This action funds an NSF Research Postdoctoral Research Fellowship in Biological Informatics for 1999.

The research and training plan is in the area of systematic biology and is entitled "Automated mapping of plant distributions and mining of biological, geological, and geographical data by parsing locality descriptions on
specimen labels." Museum and herbarium specimen labels rarely contain specific geographical coordinates,
but often provide physical and biological descriptions of where a specimen was collected. These descriptions are being automatically parsed and compared to physical and biological data stored in a geographical information system (GIS) to generate probabilistic models of taxon distributions.